CPA-CPL: Feedback-Directed Resource Management in Virtual Private Machines

In modern computers with multiple CPUs per chip, multiple levels of
computer memory are shared among the CPUs. This sharing may cause
varying response times for computer applications, potentially
affecting their usability. For instance, a video streaming
application that has unpredictable response times due to interference
from other applications may be essentially unusable. Thus, the
computer system must attempt to allocate shared memory resources
equitably to increase response consistency. Virtual Private Machines
(VPMs), in which shared computer resources are partitioned to give
the illusion that a program is running on a single physical CPU
running in isolation, are one method to provide response
consistency. This research involves the development of software
modeling techniques to predict the memory requirements of applications
run on modern computers and using those predictions to guide memory
resource allocation to provide consistent, predictable performance.

The focus of this research consists of the development of
reuse-distance-based memory locality analysis for multi-threaded
applications to predict the resource requirements of those
applications. This research will apply the new memory locality models
to manage the cache and bandwidth requirements for multi-threaded
applications run on a VPM within a multi-programmed
environment. Specifically, this research will examine reuse distance
for Partitioned Global Address Space (PGAS) applications written in
Unified Parallel C (UPC). The research will investigate the effects of
the number of threads used per application on per-thread data size and
the effect on reuse distance of shared data caused by thread
interaction. The result will be novel solutions to memory locality
analysis for multi-threaded applications while allowing the compiler
to predict and specify the resources needed to give multi-threaded
applications targeted performance.